MRI: Acquisition of an Automatic Sediment Core Analysis System to Enhance the Paleomagnetic and Rock Magnetic Laboratory at New Mexico Highlands University

1337123
Petronis

This Major Research Instrumentation (MRI) Program grant supports acquisition of an automated susceptibility core logging system and a field free-space. The equipment will support a range of paleoclimatological investigations on core material already collected from the Central High Plain aquifer and regional paleosols and modern soils. The equipment will complement existing paleomagnetic equipment at this minority serving undergraduate institution and support student experiential learning with modern techniques in paleomagnetic analysis and data interpretation.

***